The Geometric Properties of the Ricci Flow

DMS-0405255
Title: Geometric properties of the Ricci flow
P.I.: Peng Lu (University of Oregon)

ABSTRACT

The P.I. will study the geometric properties of the Ricci flow in
dimension bigger than three from three aspects. The first one is about
the Ricci flow on manifolds with positive isotropic curvature. We want
to work out a classification of closed 4-manifolds with positive
isotropic curvature. The second one is about the Ricci flow on
cohomogeneity one manifolds. One question is to explore when
nonnegativity of sectional curvature is preserved and when the
sectional curvature becomes positive. Another question is to explore
when Hamilton and Ivey's pinching theorem will hold. The third one is
about the relation between the Ricci flow and quantum field theory;
especially we will focus on the duality property of the Ricci flow
with symmetry. We will look for mathematical applications of new ideas
in physics which are related to the Ricci flow.

The Ricci flow is a very important mathematical field and has the
potential to solve very challenging problems relating to the geometric and
topological properties of spaces of dimensions three and four.
Recently the fundamental work of Perelman has drawn a lot of attention
to the field. The Ricci flow has a close connection with string
theory; more precisely, Ricci flow is the first order approximation of
the so-called renormalization group flow (RG flow). The proposed study
will improve our understanding of the Ricci flow and demonstrate that
Riemannian Ricci flow is a powerful tool in studying
geometric-topological properties of manifolds of dimension greater
than three. Furthermore we hope the proposed study will improve our
understanding of the RG flow in string theory.